Third International Meeting on P4 and P2-related Phages, May 17-19, 1990; Gargnano, Italy

This award will support U.S. participation in the Third Internation- al Meeting on P4 and P2-related Phages to take place in Gargnano, Italy on May 17-19, 1990. The meeting is being jointly organized by Professor Richard Calendar of the University of California- Berkeley and Professor Gianni Deho of the Universita degli Studi di Milano. The purpose of the meeting is to bring together scientists from the major laboratories invoved in P2/P4 phage work, in order to share experimental results of the last three years and to plan future research and collaborations. Due to the small number of laboratories working in this field, many of them European, collaborative efforts have proven extremely valuable in the past and arise naturally out of the close interaction provided by these meetings. Previous meetings have significantly furthered productive interactions in the P2/P4 community. This meeting also will provide an opportunity to plan future research efforts so that progress will continue in a wide variety of areas and, at the same time, prevent duplication of effort.